A Development Program for K-3 Teachers in Multidisciplinary Science and Inquiry Skills

The State University College at Cortland is offering a three-component program to improve science education in grades K-3 in school districts within a 60-mile radius of the University. The program includes one-day science Exploratoriums for educators and the public to focus on the needs and possible solutions for improved science education, an intensive two-week Summer Institute for four-member teams consisting of K-3 teachers and an administrator from 10 regional participating school districts, and an implementation project which will promote and support quality science instruction in the District's primary grades. The 84 participants will be involved through hands-on inquiry experiences with multidisciplinary science concepts, methodologies which encourage basic skills through science instruction, activities which encourage participation of girls and minorities in science, and the innovative use of technology to enhance K-3 instruction. Experienced peer teachers will be involved in the instruction as well as in the follow-up on-site visits. An interesting part of the project involves the training of parents and intermediate-age school children as lab aides to further assist the classroom teacher in conducting a good experiential program for the primary grade children.